Built-In Self-Test for Random Pattern Resistant Faults

This research is on techniques for testing circuits having random pattern resistant faults. The focus is on methods for synthesizing random pattern testable circuits. The synthesis algorithms being developed include algorithms for design of random pattern testable two level and multi-level combinational logic; extensions to some classes of sequential logic are also being investigated. Two methods being pursued are weighted cellular automaton, and fixed bit biased pseudo-random pattern generator.